Group Travel Support to the 40th Annual Conference on Magnetism and Magnetic Materials; Philadelphia, PA; November 1995

9418859 Cooper This grant is a group travel award to provide support for travel of postdoctoral associates to the International Conference on Magnetism in Warsaw, Poland, from August 22-26, 1994. Complementary support is also being provided by the Office of Naval Research. %%% ***